A study of how indicators for 2-D turbulence depend on the driving force in the Navier-Stokes equation

This project is focused on the discovery of driving forces that support
the Kraichnan theory of 2-D fully developed turbulence. In recent work
the investigators and their collaborators have identified critical wave
numbers expressed as averages of different norms of the solution to the
Navier-Stokes equations (NSE). These wave numbers provide necessary, and
nearly sufficient conditions for the Kraichnan theory to hold. This team
has also localized to some extent the global attractor of the NSE in a
plane spanned by two of these norms (one being the energy), to help
understand which driving forces produce these conditions. The proposed
work will combine this analysis with computational optimization to zero in
on such forces, and then study in detail the turbulent features they
produce. The mathematical treatment of turbulence is largely driven by
the heuristic theories of Kolmogorov, Batchelor and Kraichnan. The
approach taken in projecting the attractor however, seems to be entirely
new. The information provided by this analysis will guide the
computational component which otherwise would be confronted with a vast
landscape of possible driving forces to consider.

Turbulence is readily observed in three-dimensional physical space
domains. Most people think of a bumpy plane rides (in this case the
domain is the volume around the airplane). Like the swirls generated by
rocks in a stream, rapidly changing patterns form in the air around the
plane. Turbulence theories do not attempt to predict the precise
development of these patterns, but rather find (a) consistent laws which
describe how, on average, energy is transferred to smaller length scales,
and (b) critical length scales at which this this phenomenon changes.
True 2-D flows in nature are less prevalent. The most prominent example,
the earth's atmosphere, is actually a thin 3-D domain, whose behavior
approaches that of a 2-D flow. The fate of energy over different length
scales is more complicated for 2-D flow, though that of 3-D flow is in
some sense embedded into it. Though 2-D experiments are difficult to
carry out in the laboratory, they allow for much finer study on a
computer. Of all 2-D flows, the one studied in this project is arguably
the most amenable to analysis and efficient simulation. Yet it is
fundamental, not only to 2-D and nearly 2-D flows such as the atmosphere,
but also to 3-D turbulence due to universality.